NSF IUCRC for Wireless Information Networks: TIE Program between University of Calfornia San Diego and The State University of New Jersey

ABSTRACT EEC-9714727 GOODMAN This two year "TIE" project funds a collaborative study with two Industry/University Cooperative Research Centers (I/UCRC). The two I/UCRC's are the Rutgers University Industry/University Cooperative Research Center for Wireless Information Networks and the University of California San Diego Industry/University Cooperative Research Center for Ultra-High Speed Integrated Circuits and Systems. The "TIE" project is entitled, "Interference Cancellation Prototyping and ASIC Development for Wireless CDMA Communication." The Rutgers University I/UCRC will investigate the critical issues of acquisition and synchronizing essential for multi-user direct sequence CDMA communication convolution coding and utilize recent results on multi carrier DS/CDMA systems. In the second year further research to study other multi-user detection architecture will be carried out after adding radio frequency hardware. The University of California - San Diego Center will work with the Rutgers University Center in designing an interference cancellation chip and give it to National Semiconductor Corp. for fabrication . In the second year the chip will be tested and incorporated into a CDMA communication system for multi-users.